ITR: Algorithms for Active Storage

This project explores techniques for efficient computation on large, disk-based data sets. The research focuses on theoretical and practical aspects of ``active'' storage systems, in which each storage unit (a disk or group of disks) has some limited capability for local computation. A key goal of the project is to develop a theoretical model for active storage systems. The model is a basis for designing and evaluating algorithms for active storage systems, identifying useful computation kernels for active storage units, and deriving lower bounds for fundamental problems. The applied aspects of the project include design and implementation of a programming environment (PEARL) for active storage algorithms, and experimental evaluation of new algorithms for active storage. This project is a collaboration with a separately funded project team at Carleton University in Ottawa, Canada.